PASI2012 - Exploring the Terascale and Beyond; Buenos Aires, Argentina; March 5-16, 2012

1123982
Sheaff

This Pan-American Advanced Studies Institutes (PASI) award, jointly supported by the NSF and the Department of Energy (DOE), will take place March 5-16, 2012 at the Universidad de Buenos Aires (UBA) in Buenos Aires, Argentina. Organized by Dr. Marleigh Sheaff of the University of Wisconsin-Madison, Dr. Marcela Carena of the University of Chicago, and Dr. Daniel Chung of the University of Michigan, the institute will focus on the exploration of the Terascale, covering topics in particle physics, cosmology, and astrophysics. The program will give students a broad picture of the three frontiers along which particle physics must advance to solve some of the crucial mysteries of our universe such as: the origin of mass, the nature of the dark matter, the generation of the matter-antimatter asymmetry, and the possible unification of forces. The three frontiers have been identified as the Energy Frontier, the Intensity Frontier and the Cosmic Frontier. The PASI will also explore how current and planned future experiments in physics will advance our understanding of these frontiers.

Participation of young U.S. physicists along with their peers from a number of other countries in the Americas will provide them with international experience early-on in their careers. This will help them prepare for the large global collaborations that involve people from very diverse backgrounds, which have now become frequent in these areas. The organizers will develop and widely advertise web pages to disseminate the materials presented at the institute to the wider community.